Mathematical Theory of Aeroelasticity

Purpose and Intellectual Merit
The objective of this research is the systematic development of a mathematical theory for
Aeroelasticity drawing on Abstract Functional Analysis -- in particular nonlinear Aeroelasticity
-- centered on the canonical problem of flutter: the instability endemic to aircraft at high enough
air speed in the subsonic range, M < 1. In particular this would mean the development of
mathematical models for aeroelastic phenomena of interest on their own and also explore
analytically the design of feedback controllers -- including self-straining actuators, "intelligent
controllers" for Flutter Boundary Expansion.
Broader Impact
We should point out that while aircraft wings (including UAV's) are the primary domain of the
theory, there is a new emerging area of application: Alternate Sources of Energy such as Wind
Turbines -- where the aeroelastic stabilization of the blades is an increasingly important issue.
Longer blades are apparently more efficient but reducing weight implies higher flexibility, just as
with UAV's.
Specific Tasks: First Year
Analytical study of the effect of nonzero angle of attack and nonzero camber on flutter speed as a
function of Mach number, especially in the transonic range -- a currently unsettled problem. This
would mean in particular studying the linearized version of the nonlinear aeroelastic equation,
leading to generalization of the Possio Integral Equation. In turn we will need to study the root
locus problem for the corresponding convolution-evolution equation, including the performance
of self-straining actuator models -- still using the Goland cantilever beam model for the wing.
Specific Tasks: Second Year
Extend the theory to where the structure is a uniform thin plate rather than a beam so that we can
consider controls on the leading and/or trailing edge of the wing. We could then investigate self-straining
actuators -- piezo-strips chordwise as well as spanwise, eliminating ailerons. For a
high-aspect-ratio wing we could still work with typical-section aerodynamics -- so that the
nonlinear aerodynamic theory we have developed can be used without additional effort.
Specific Tasks: Third Year
Extend the aeroelastic theory to finite wings finally eliminating the high-aspect-ratio constraint.